A Probability-Based Description of Strong Motion Accelerograms for Improved Seismic Risk Studies

9309149 Papadimitriou This research will focus on the development of a multi-parameter stochastic characterization of earthquake acceleration time histories. The stochastic models will consider important ground motion features including the nonstationarities in both the amplitude and frequency content of the ground shaking which have significant influence on the dynamic response of structures. The parameters of the stochastic model will be probabilistically related to variables accounting for the seismic environment at a site, so that the ground motion model can become an integral part of a seismic hazard assessment. Response characteristics of linear and nonlinear, including hysteretic structures subjected the stochastically defined ground motions will be studied to evaluate the effect of various ground motion features and their associated uncertainties. ***